Across-Arc Seamount Chain and Remnant Arc Volcanism in the Izu Arc

9402469 Taylor In this project the PIs will investigate the relationship between rift-related and arc-related volcanism behind the volcanic front of Izu arc using a combination of field studies and geochemistry. In these arcs rift and cross-chain arc volcanism occur at similar distances from the slab and overlap in eruption ages. The PIs will also sample the across arc seamounts in the Izu region. They wish to analyze the samples for trace elements and isotopes. They argue that by studying arc magmas further away from the trench region they can get a much better handle on the nature of the wedge mantle. They will also be able to determine whether the invasion of an enriched mantle component is a prerequisite to rifting. ***